NSF/DARPA Agreement for use of DARPA VLSI Implementation

this project involves continuing work under the Nation Science Foundation (NSF) and the Defense Advanced Research Projects Agency (DARPA) agreement concerning the design of new VLSI chips.